Conference: 11th International Meeting on Intercellular Communication in Plants

The 11th International Meeting on Intercellular Communication in Plants (PD2024) will bring together scientists from the global community who study plasmodesmata and intercellular trafficking. The meeting is scheduled to be held from September 17th to 20th, 2024 in St. Louis, Missouri at the Donald Danforth Plant Science Center. The provision of travel support from this award to US-based members early career scientists will allows them to participate in this conference. PD2024 will: (1) provide a supportive venue where early career scientist can share their research and ideas, and (2) offer structured activities that foster network building. PD2024 will focus especially on early career scientists with presentations in each session, a special session of ‘lightning talks’ to allow many early career scientists to share the ‘main stage’, and poster sessions to disseminate their work more directly with community members.

This meeting will focus on recent developments related to intercellular communication in plants and plasmodesmata, with a focus on: 1)sharing of research discoveries and progress, and (2)foster collaboration and encourage interdisciplinary approaches that will allow rapid future progress in plasmodesmata biology. The meeting is organized into seven scientific sessions arranged around topics including Intercellular trafficking in Development, Structure and Membranes of Plasmodesmata, Biophysics and Modeling of Plasmodesmata and Intercellular trafficking in Plant-Microbe Interactions among others. The meeting will include Keynote presentations from experts in the field of intercellular trafficking and from plant mechanosensing and plant evolution and diversity.